Image Coding for Constrained Systems

TITLE: Image Coding with Constraints

ABSTRACT

This project studies image and video coding schemes for emerging and future
networks. The study concentrates on certain specific types of image coding
including facsimile, still imagery, and video. Networks of the future will
consist of hybrid combinations of wired and wireless components. Commercial
products such as digital cameras, cell phones, and PDAs will send and/or
receive images of various types over a wide range of network channel
conditions. The networks impose constraints such as: low data rate and
high/unpredictable packet losses. The devices impose constraints including
small batteries, small displays, low delay, limited memory, and limited
processing power. Together, these constraints make the design of inexpensive
and efficient image transmission devices of the future a very challenging task.
In addition to designing such systems, a solid theoretical understanding of the
achievable qualities and limitations is important to know.

The main objectives of this research are to achieve deep theoretical
understanding of source and channel coding for images transmitted on lossy
networks and to develop practical algorithms that can be effectively used in
real applications. The work exploits the diverse backgrounds of the PIs in
image and video coding and combined source/channel coding. The investigation
involves code design, theoretical analysis, and computer simulation.
The main topics investigated for constrained image coding include:

(1) Robust facsimile transmission,
(2) Robust low rate video source coding,
(3) Error correction, resilience, and concealment.